New Methods and Results in Signal Processing and System Identification

Nehorai This research focuses on new theoretical and algorithmic solutions to three problems in the general area of signal modeling and system identification: 1. a computationally-efficient high-order Yule-Walker estimator and its adaptive counterpart; 2. fitting rational transfer function models to frequency response data; and 3. hypothesis testing and detection with the optimal instrumental variable method.